RUI: Multi-Scale Analysis of Catalytically Grown Carbon Nanofibers and Bulk Components

Nanomaterials are advanced materials which have at least one dimension below 100 nanometers, or about one one-thousandth the width of a human hair. The most widely studied nanomaterials are based on carbon, as these materials have the potential to transform society by allowing stronger, lighter structures, more efficient computing and advanced medical applications. The drawback is that they often require specialized processing which is difficult to scale up economically. A critical transition must be made to convert their theoretical potential into real-world performance. This award enables fundamental research into a new process which efficiently produces bulk components made entirely of carbon nanofibers. This highly versatile material has the potential to broadly impact society and the economy by enabling applications in transportation, energy, environmental and medical disciplines. This research will use multi-scale analysis to understand how the fibers form (nanoscale), how they interact (microscale) and how they behave collectively as a bulk component (macroscale). Such diverse topics require a multi-disciplinary approach to holistically unite nanoscale materials science, chemical engineering and advanced manufacturing. The project will engage these diverse groups at the professional and educational levels and demonstrate the importance of preparing science, technology, engineering and mathematics (STEM) students for a multi-disciplinary workplace.

The direct synthesis of bulk components comprised entirely of carbon nanofibers creates a stand-alone embodiment for the application of nanoscale carbon. Carbon nanofibers are formed during the decomposition of a carbon-containing gas over a suitable catalyst. The catalyst is placed within a constrained environment (a mold), which the nanofibers fill during growth. After sufficient growth, the fibers form a highly entangled, bulk component which is mechanically robust. There are many factors which can alter the properties of the three-dimensional fiber collection, and the objective of this research is to understand the governing factors from fiber formation at the catalyst to fiber interaction in the bulk. An important understanding of fiber growth using low-cost, bulk catalysts will be attained by uniquely controlling composition and microstructure through mechanical alloying. Foundational metrics will be established for this brand-new process in the areas of kinetics, morphology and long-range response of fiber growth to constraint. The bulk properties will also be identified as a function of those structural characteristics. This multi-scale approach is critical to accurately couple processing, properties and performance.